CHT'01: Participation in an International Conference

The 2nd International Symposium on Advances in Computational Heat Transfer will be held on May 20-25, 2001, in Palm Cove, Queensland, Australia. The International Centre for Heat and Mass Transfer will host the conference. The purpose of the conference is to provide technical exchange, identification of the state-of-the-art, and the projection of future needs and trends in computational techniques applied to heat transfer. The conference will assemble scientists and engineers working in fields related to, and requiring, computational methods for modeling all modes of heat transfer, including coupling with fluid flow. The symposium will be held at the Novotel Palm Cove Resort, Palm Cove, Queensland, Australia. The conference web site is (http://cht01.mech.unsw.edu.au); Begell House, Inc will publish the conference proceedings. The NSF funds will help support travel for U.S. participants consisting of undergraduate and graduate students, post-doctoral fellows, and non-tenured faculty with limited research funding working in the field of computational heat transfer.